RPG: Developmental Changes in Myelin Membrane Fluidity Evaluated with Novel Bioengineering Techniques

9509181 Husted The overall goal of this research is to evaluate central nervous system (CNS) myelin membrane fluidity as a function of temperature- induced development in fish. In particular, the following questions will be addressed: (1) How do temperature-induced changes in myelin lipid composition affect myelin membrane fluidity in fish adapted to different growth temperatures? (2) How do these changes affect the interaction forces between myelin lipids and proteins? To address these questions, the following specific aims will be accomplished: Aim 1. Membrane fluidity of cerebral and spinal cord myelin lipids from fish adapted to different growth temperatures will be characterized using carbon-13 magic angle spinning NMR spectroscopy and correlated with variations in myelin lipid composition to determine how changes in myelin lipid composition affect myelin membrane fluidity. Aim 2. Short-, intermediate-, and long-range attractive and repulsive forces in myelin membranes from fish adapted to different growth temperatures will be evaluated with the Surface Forces Apparatus and correlated with changes in membrane fluidity to determine how changes in myelin membrane fluidity affect myelin lipid-protein interactions %%% The dynamic state of lipid in biological membranes is a central feature of current models of membrane organization. The motion of membrane constituents is referred to as membrane fluidity. This research will evaluate central nervous system myelin membrane fluidity as a function of temperature-induced development in fish. In particular, the following questions will be addressed: (1) How do temperature-induced changes in myelin lipid composition affect myelin membrane fluidity in fish adapted to different growth temperatures? (2) How do these changes affect the interaction forces between myelin lipids and proteins? Membrane fluidity will be characterized using nuclear magnetic resonance spectroscopy. Short-, intermediate-, and long-range attr active and repulsive forces in myelin membranes from fish adapted to different growth temperatures will be evaluated with the Surface Forces Apparatus and correlated with changes in membrane fluidity to determine how changes in myelin membrane fluidity affect myelin lipid-protein interactions. ***